RUI: The Archaeology of Southwestern New York State

With National Science Foundation support, Dr. Sarah Neusius and her colleagues will continue their archaeological excavations at the Ripley Site which is located in Chautauqua County, N.Y. Previous excavation by both Dr. Neusius and earlier investigators has confirmed the presence of a large earthwork or surrounding wall and rich deposits of cultural materials within. Dating of the site is uncertain and occupation may range from between the thirteenth century A.D. to historic times. Seven weeks of excavation are planned. The site will first be plowed and disced to reveal the distribution of cultural materials. An intensive systematic surface pickup will then be conducted. The material will be plotted and on the basis of the results two types of excavation will be undertaken. Hand excavation will be conducted in a midden area to recover indentifable faunal and floral remains as well as carbon samples for radiocarbon dating. Secondly mechanical stripping of the plow zone will be undertaken in selected portions of the site. Features exposed will then be excavated by hand. Fieldwork will be followed by analysis to accomplish five goals: 1. reconstruction of site plan; 2. analysis of representative and provenienced assemblages for different material classes; 3. interpretation of features, structures and activity areas; 4. documentation of occupational history; 5. reconstruction of subsistence strategies and seasonality. Many archaeologists have focussed on the effects of contact between native Americans and early colonial settlers. Through cases of such culture contact, underlying processes of interaction and culture change can be discerned. Particular attention has focussed on the Northeastern United States because in this region the Iroquois confederacy had achieved a level of political organization rare in chiefly societies. This is also a region with good historic documentation. However for such work to succeed it is necessary to have good baseline information about both precontact and early contact periods. Many earth circles have been found in the Northeast yet their function is unknown. Some archaeologists have argued that they surrounded and served to protect villages while others have maintained that they relate not to occupation sites but rather ceremonial centers. The answer to this question is important because it affects understanding of both population density and social/political organization. Dr. Neusius research at the Ripley site will address this issue. This research is important for several reasons. It will shed new light on America's unwritten past and increase our understanding of the process of culture contact and culture change. The grant will also provide support to an undergraduate teaching institution and serve both to enhance the level of teaching and training for students.